Mathematical Sciences: Inferences Concerning the Mean of Negative Binomial Populations

This research aims at developing an extensive collection of statistical estimates and hypotheses testing procedures for data generated by the negative binomial distribution. The types of estimates and testing procedures to be developed are, for the most part, analogous to those that exist for data generated by a normal distribution. This work is made possible by the existence of inexpensive computational power. This research will produce the statistical methodology appropriate for analyzing many types of "counting" data including, for example, automobile accidents, communication failures, and a changing population's size. The standard practice for analyzing these data is to use mathematical approximations that are only valid as the number of items studied goes to infinity. The impact of this research will be to provide a collection of accurate statistical tools so that these approximations need not be relied upon.